Understanding Ethics & Values in Science & Technology Using Public Affairs Video Programs

The Public Affairs Video Archives at Purdue University includes many congressional hearings and public policy conferences which involve science and technology, scientists and engineers. Funds for this project will enable the Archives to develop several edited videos, video series and teaching guides to facilitate and encourage the use of these programs for the study of ethics, values and policy development involving science and technology. A recent graduate will work with university students and faculty to develop these materials and test them in classrooms. Advisors will assist in the development of ethics components. The topic of this proposal is of highest priority for Ethics and Values Studies. The qualifications and track record of the investigators and organization are excellent. The project provides a cost-effective test of the feasibility of developing edited video programming on social and ethical concerns associated with science and technology for classroom use. Results will be useful for a wide range of individuals and groups. The budget is very modest. The proposal is recommended for support.